Consequences of Adaptive Individual Behavior, Higher Order Interactions, and Food Web Structure in a Larval Anuran Community

The manner in which food web structure regulates the size of animal populations is currently receiving much theoretical and empirical attention.. This proposal seeks to develop a mechanistic understanding of the strength of interactions in a food web consisting of fish, invertebrate predators, and two anuran larvae. Indirect effects mediated through this food web are central to changes in relative success of the two anurans along the environmental gradient from permanent to temporary ponds. The food web interactions are approached at several levels ranging from individual behavior to large scale food web manipulations to build from mechanisms to an understanding of community phenomena. A focus of the proposal is an experimental evaluation of the importance of higher order interactions generated by behavioral responses of prey to the presence of their predators. These higher order interactions alter the nature of competitive interactions among prey in the absence of any direct mortality effects of predators on prey. Because of the widespread occurrence of behavioral responses of prey to predators, such higher order interactions are likely important in many ecological systems. The behavioral responses of the anurans in turn are mediated by growth (competitive ability)-risk tradeoffs, one through activity levels and the other through habitat choice. Theory at the individual behavioral level will be developed, tested and used to provide a theoretical basis for understanding the community consequences of adaptive individual behavior. Both of these tradeoffs are relevant to interactions in many taxa. Finally, because behavioral responses are often functions of individual size, the work will explore ontogenetic constraints on behavioral expression and the consequences to species interactions.